Museum Research Apprenticeship Program

The Natural History Museum of Los Angeles County will initiate an academic year Young Scholars project in ecological research methods, data analysis and scientific writing for 20 students entering grades 10-12. Participants will attend a 30-week course in four museum-related disciplines, concentrating specifically on the natural history of southern California. Each of the four "courselets" will be taught by museum curatorial staff and will include lectures, discussions, lab activities and a field trip to demonstrate field research techniques. Workshops will be conducted on research methodology and project design, statistics, scientific writing and ethics in science. Students will conduct ongoing small group research projects pertaining to subject matter covered in the courselets. This program is designed to expose high school students to the research roles of museums, curators and other scientists and to increase the students' knowledge about the educational requirements for a career in the sciences.